RIA: Near Field Photodetection Optical Microscopy and Spectroscopy

The primary objective of the Research Initiation Award research is to demonstrate the measurement of evanescent optical fields with nanometer scale spatial resolution. To achieve this goal, a new concept and approach has been invented. The approach is based upon the direct detection of local variations in optical field intensity by a silicon photodector probe of nanometer size. The probe is raster scanned in close proximity to an optically illuminated surface and the photoresponse of the probe is measured and recorded at each point. This information is electronically displayed in a manner similar to that of a Scanning Tunnelling Microscope. The resultant image represents the local optical field intensity at each point on the illuminated sample surface. The achievement of this goal will require the design and development of a new silicon nanoprobe and the demonstration of the novel concept of "Near Field Photodection Optical Microscopy". The second objective is to explore the use of this new nanoprobe for doing local optical spectroscopy on the nanometer scale. This will be accomplished by focusing a tunable optical source onto a surface which has heterogeneous optical properties. The nanoprobe is positioned in close proximity to a specific sample feature and the nanoprobe photoresponse is measured as the frequency of the illumination source is tuned over a given frequency range. The measured photoresponse as a function of frequency is a spectroscopic fingerprint which should allow identification of chemical or molecular species at the sample surface with nanometer scale resolution.